Intellectual and Organizational Support of NSF'S Graduate Stem Fellows in K-12 Education (GK-12) Program

This four year project led by The American Association for the Advancement of Sciences (AAAS) will continue fostering interactions among projects funded by the Graduate STEM Fellows in K-12 Education (GK-12)through a series of meetings that include one annual meeting and two special focus meetings every year. The annual meeting will be broad and will target all different GK-12 participants (PIs, Fellows, Teachers, Project Coordinators, Evaluators and Faculty Members). The special focus meetings will target a specific GK-12 group or will explore a theme or issue of special interest to the GK-12 program or GK-12 projects. AAAS also will update the current website and revise and expand its content to provide a resource to the GK-12 community. Some of the additions to the website will be: an e-newsletter, alumni directory, evaluation instruments, ready access to STEM activities and statistical data on projects.